CRII: SaTC: Design Space Modeling for Logic Obfuscation to Enable System-Wide Security during IC Manufacture and Test

Due to the rising cost of semiconductor manufacturing, computer chip designers are increasingly reliant on offshore manufacturers. These manufacturers are generally considered to be untrusted, driving concerns of intellectual property (IP) piracy and theft. Logic obfuscation, also called logic locking, was developed to mitigate these threats, however, its effectiveness varies widely based on how obfuscation resources are allocated throughout a system. This project studies how to model, automate, and evaluate the high-level configuration of logic obfuscation in a system to maximize security with minimal design overhead. The project's novelties are the system-wide view of the obfuscation resource allocation problem and the framework to generate mathematical models for this allocation problem. The purpose of these models is to automatically identify effective distributions of budgeted obfuscation resources in varied computer chips and provide intuition on how obfuscation secures a complex system. The project's broader significance and importance are in lowering the barrier to developing secure computer chips for high-trust applications (e.g., healthcare, defense, finance, and automotive) through automation. The integration of education and research is a key objective. This includes research opportunities for graduate and undergraduate students as well as open-source course modules to train next-generation security experts for the workforce.

This project bridges the knowledge gap between combinational, gate-level logic obfuscation schemes and their security impact in the larger integrated circuit they protect. Specifically, the project develops a design space modeling framework for logic obfuscation system configuration in order to budget obfuscation resources, allocate resources to design regions, and specify obfuscation schemes in these regions. Given a fixed budget of various obfuscation resources, these models automatically identify obfuscation configurations that fulfill system-wide security goals with minimal design overhead. The research artifacts are 1) quantifiable system security metrics for obfuscation, 2) an open-source design space modeling framework for obfuscation, and 3) a verification of generated models.